Physiochemical Studies on Xanthine Oxidizing Enzymes

Dr. Massey is continuing his study of milk xanthine oxidase in which the chemical, physical and structural properties of the four redox centers of the enzyme and the interactions between them will be examined. The project will also include a comparative study with two closely related enzymes, the dehydrogenase form of the milk enzyme and the stable xanthine dehydrogenase from chicken liver. Major use will be made of stopped flow optical techniques to monitor oxidation and reduction of the redox centers under various conditions as well as extensive use of 13C NMR to study the interaction of substrates, products and inhibitors with the molybdenum center. Xanthine oxidase is a well-studied molybdenum-containing hydroxylase and studies on the enzyme lie at the forefront of our efforts to establish the structure of the molybdenum centers and the chemical mechanisms operative in this small but important class of enzymes. Because xanthine oxidase contains no fewer than four centers capable of reversibly taking up reducing equivalents, the enzyme also serves as a useful model for the interaction of redox-active centers in the more complicated systems of photosynthetic and mitochondrial electron transport. ***